Advanced Study Institute on Techniques and Concepts of High Energy Physics

Advanced Study Institute on the Techniques and Concepts of High Energy Physics is designed to educate promising particle physicists at an early stage in their career. The concentration is on the latest in experimental tools. This Institute also receives partial support from NATO for its enhancement of exchanges among scientists if different countries.